CSEDI WORKSHOP in Tokyo on the Post-perovskite Phase transition

The PI has requested funds to help support travel costs of graduate student
and one early career participants to the Tokyo Post Perovskite conference,
being held in October, 2005. The program will revolve around recent
discovery of the post-perovskite phase transition and the rapidly evolving
developments in mineral physics, seismology and geodynamics as a result of
this discovery. This international meeting will bring together scientists
from various backgrounds, perspectives and disciplines. In particular, the
program and this support will foster the participation of graduate students
and young scientists. The meeting is being co-sponsored by the
Japanese Center of Excellence in Tokyo.